Academic Scholarship Program in Computer Engineering

This project provides 20 scholarships the first year and 40 scholarships the second year for students majoring in computing engineering. Thus the first cohort of scholars receive continued support if they maintain their eligibility in the program. During the third year, scholars can participate in industrial internships or on-campus research projects. Recruitment into the program focuses on graduates of community technical colleges, undecided engineering students, and those interested in transferring from other disciplines into computer engineering. Computer engineering faculty serve as advisors for the scholars, while academic support services such as peer mentoring and tutoring are available through the Institute of Teaching and Learning at the University of Connecticut.